Collaborative Proposal: Understanding the Causes of Continental Intraplate Tectonomagmatism: A Case Study in the Pacific Northwest

0506869
Grunder

These awards involve an investigation of the causes and consequences of intraplate volcanism in the Tertiary-Recent magmatic province in eastern Oregon. The project will focus on four main questions related to generating the intraplate magmatism: 1) Is a plume required? ; 2) What role does subduction play? ; 3) What role does lithospheric structure play in generating/controlling magmatism and how has magmatism affected lithospheric structure? ; and 4) What role does continental crust play in magmatism and how is continental crust modified by magmatism? To answer these questions the PI's will acquire passive (James and Fouch) and active (Keller) seismic data, incorporating data from the Bigfoot array (US Array), new geochronological and geochemical data (Carlson, Duncan, Grunder, Hart) and experimental petrological investigations (Grove) on targeted magmatic products and undertake numerical and laboratory dynamical modeling.